A Multi-Factor Investigation of Variables Affecting Informal Science Learning

0000527
FALK

With a Small Grant for Exploratory Research, The Institute for Learning Innovation will to conduct a study, "A Multi-Factor Investigation of Variables Affecting Informal Science Learning." Prior research has revealed seven variables, or the suite of variables encompassed by these seven variables, that affect visitor learning in science centers. This research will study to what extent each of the variables contributes to learning outcomes, or which of these variables explains the most variance. It is anticipated that the results of this study will have an important and direct impact on future investigations into science center learning and efforts to facilitate science center effectiveness.